REU Site: Embedded Machine Learning Systems

Computing systems are embedded throughout our environment - in
applications including "smart" appliances, environmental control
systems, traffic and weather monitoring systems, and medical
monitoring. Current techniques for controlling these devices employ
fixed algorithms for sensory processing and for taking subsequent
action. However, as these devices increase in their complexity,
computing power, and sensory capabilities, it becomes possible to
design systems that can automatically adapt their behavior to the
specific environment and task in which they are embedded.

Undergraduate students involved in this multidisciplinary REU Site
will investigate the use of machine learning techniques in the
development of a variety of embedded systems. Application areas of
focus include robot control; assistive, wearable computing systems;
computer intrusion detection; and on-line weather prediction.
Students will receive training in a variety of areas, including
embedded system design, empirical methods for system evaluation,
statistical machine learning techniques (including supervised and
reinforcement learning, Bayesian methods, genetic algorithms and data
mining), sensor processing, control, embedded interfaces, technical
writing and oral presentation.